Building an Infrastructure for Generative and Sustained Change in Science Instruction in Urban Schools

In 1997, the National Science Foundation support created the Center for Learning
Technologies in Urban Schools (LeTUS); a unique partnership focused on improving
opportunities for challenging learning for urban children. LeTUS brings together two
urban school districts, Detroit and Chicago, and research groups from the University of
Michigan and Northwestern University. This partnership has created an infrastructure for
developing and sustaining broad-based collaboration among professionals from public
schools and university contexts, committed to improving teaching and learning in urban
schools. This ABR proposal summarizes LeTUS' four years of accomplishments and
charts plans for an additional eighteen months of work.